TC: Small: Anchoring Trust with a Verified Reference Kernel

Many complex software-based systems must be certified in order
to be deployed in safety-critical environments. Modern software
certification processes require trustworthy evidence supporting the
verification claims. While verification tools have made tremendous
gains in power, they lack the ability to generate concise and
independently checkable evidence. The V Kernel project develops a
practical approach to reconciling trust and automation. The claims
generated by the fast but untrusted front-line verification tools are
certified offline by slower but verified back-end checkers. The
front-line analyzers can provide hints and certificates that assist the
back-end tools. The verification of the checkers can be carried out by
untrusted tools as long as the end result can be independently
certified. Our approach does not constrain front-line tools by
requiring them to produce proof objects. A wide variety of verification
tools including SAT solvers, decision procedures, model checkers, static
analyzers, and theorem provers can be validated using this approach.